Analysis, Design, and Performance Evaluation of Optical Fiber Spectrum-Sliced WDM Systems

9618787 Jacobs Spectrum-slicing provides an attractive low-cost alternative to the use of multiple coherent lasers for wavelength-division multiplexing (WDM) applications by utilizing spectral slices of a single broadband noise source for the different data channels. This two-year research program is for the analysis, design, and performance evaluation of optical fiber spectrum-sliced WDM systems. ***